Computer and Information Science and Engineering Research Instrumentation

A robot-manipulator configuration will be provided for researchers at the University of South Carolina for research in the Center for Machine Intelligence. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of: Motion Stereo Vision Coordinated Tracking of Multiple Point Targets with Multiple Cameras Multiple Sensor Integration for Robotics